New Applications of Floer homology to Symplectic Topology

Abstract

Award: DMS-0805085
Principal Investigator: Peter Albers

This project aims to investigate three sets of problems. First,
the principal investigator's PhD thesis laid the foundations of a
novel approach to functoriality for Floer homology, and the next
steps in this direction are to remove some restrictive hypotheses
and to confirm the compatibility of this theory with the
pair-of-pants product on Floer homology. Second, Frauenfelder
and the PI have recent established Floer homology for negative
line bundles, that is, for a class of non-compactly supported
Hamiltonian functions in non-compact symplectic manifolds, and
this theory should be made more robust by removing symplectic
asphericity hypotheses and should also be extended to a
Morse-Bott situation. Third, the PI will apply the Fredholm
theory in polyfolds developed by Hofer, Wysocki, and Zehnder to
explore newly emerging invariants from the theory of polyfolds
with operations.

Symplectic geometry is the study of spaces equipped with the
basic structure that underlies Hamiltonian mechanics, for which
preferred coordinates give both position and momentum of a moving
object and in which conservation of energy is natural and
inevitable. The Floer homology theory referred to in the first
paragraph studies such manifolds through the critical point
behaviors of certain auxiliary spaces; this kind of analysis of
critical points goes back to work of Marston Morse circa the
1930s, but its application in the modern context requires new
tools such as the polyfold theory cited above.